Welfare Policy in the American States

9320849 Berry This research investigation develops and tests a model of state welfare policy which stresses the interaction of three groups of participants: (1) poor individuals who decide whether to participate in welfare; (2) state policy makers who establish conditions for eligibility and set benefit levels for programs like Aid to Families with Dependent Children (AFDC); and, (3) national policy makers who set general guidelines for state policies. The model incorporates seven "submodels," each focusing on a major research question from the welfare literature. In most cases, the submodels involve specifications that reflect the core logic in support of the submodel more accurately than specifications in the existing literature. More importantly, while extant literature tends to investigate these models in isolation, this research recognizes that this division of labor has impeded our ability to answer the research questions of interest by basing conclusions on parameter estimates from grossly underspecified models. In contrast, this research estimates a more reasonable model reflecting combined causal linkages in all seven submodels. In effect, their ability to obtain "good" estimates of coefficients in each submodel is enhanced by statistical controls and identifying restrictions based on the variables and causal linkages in the other submodels. ***